CPA-CSA: On-Chip Interconnection Networks for Scalable Integrated Systems

The successive innovations in semiconductor manufacturing over the
last 35 years of Moore's law have turned what used to be a room-sized
computer system into a single chip composed of billions of
transistors. These levels of integration have forced a change toward
parallelism in computer system design, including both single-chip
multiprocessors and systems-on-a-chip. Today, these chips have a few
tens of individual processors but future scaling will make hundreds or
thousands available on a chip. Critical to the success of such systems
is the hardware network that enables the processors on the chip to
communicate with one another. Today's chips typically employ simple
networks-on-chip (NOCs) such as bus, ring, or small grid. Future
systems with numerous processors will need scalable and innovative
NOCs to provide high communication bandwidth, low latency, and low
power consumption.

This project seeks to develop scalable NOCs that are well suited to
switch and wire capabilities in emerging chip fabrication
technologies. In particular, the project would investigate new NOC
topologies that exploit the enormous number of on-chip wires while
reducing the number of hops to travel from a source to a destination. A
second challenge is avoiding congestion in the network, much like
avoiding automobile traffic congestion at rush hour. The investigation
will develop new methods of monitoring the status of the routers and
links in the network so that network messages can route themselves
around network hotspots, improving network latency and bandwidth for
all traffic. An important outcome of this research would be a public
repository of network traces for different types of on-chip network traffic that will help improve the experimental methods of all NOC researchers.